NSF I/UCRC for Biocatalysis and Bioprocessing of Macromolecules

This action continues the life cycle of the Industry/University Cooperative Research Center for Biocatalysis and Bioprocessing of Macromolecules. The Center remains committed to fostering a research and technology base that is focused on creating synergy between academic and industrial interests so that fundamental insights can be translated to commercial successes.